Determination of Earthquake Source Parameters from Wave Form Data for Studies of Global and Regional Seismicity

This research is to continue the valuable program to catalog centroid-moment tensor (CMT) solutions from global digital seismic data on a routine basis. The Harvard CMT catalog has become a significant resource for the seismological community in global tectonic studies. In addition, research will be done on large deep earthquakes lying away from the most intense seismic activity in Wadati-Benioff zones, and on better methods for parameterizing source time functions of earthquakes. These studies are fundamental to seismological research and the origin and distribution of earthquakes. This research is a component of the National Earthquake Hazard Reduction Program.